Discrete-Event Dynamic Systems: Theory and Algorithms

This research program is concerned with the development of both theoretical and computational tools for the analysis of stochastic discrete-event dynamic systems (DEDS). Such systems arise naturally in the analysis of modern manufacturing facilities, telecommunications networks, and computing/database machines. It is intended to establish basic algorithms (primarily simulation- oriented) for the efficient numerical computation of performance measures associated with such systems. Although the primary goal is to develop theoretical and algorithmic tools, it is expected that the research program will develop theory and methodology that will positively contribute to applied probability, queueing theory, and discrete-event simulation.